SBIR PHASE II: Scale-up of Novel Deformation Processing of Bismuth-Based High Temperature Superconductor Composites

9710601 Riley In this Phase II Small Business Innovation Research project, the proposer will scale-up a novel deformation processing scheme discovered in the Phase I feasibility research. Commercially viable high-temperature superconductor (HTS) wire must have high Jc performance and low cost. In the Phase I feasibility research, the proposer determined the relative and absolute importance of materials and process hardening on the superconductor performance and microstructure of Bi-2223 composite tape using a fundamental approach and a simple conceptual framework. This effort was successful, leading to performance improvements of up to 40% for multifilamentary composites appropriate for commercial application. In the proposed Phase II program, the proposer will scale-up the innovative deformation process scheme to fabricate long and continuous lengths of Bi-2223 composite with performance superior to that of conventional Bi-2223 composite. ***